Approximating Bicriteria Network-Design Problems

This project involves designing approximation algorithms for
fundamental problems arising in computer networks in which nodes need
to communicate with each other under some constraints.

Building a direct link between any two nodes has a cost associated
with it. This cost is different for different pairs of nodes. There
are several constraints, for example, a typical requirement would be
that every node would be able to reach every other node by a sequence
of links. Examples of some other constraints are making the network
robust in case of node failures, communication paths between nodes
being short on average, and buying enough bandwidth for links to
support the expected traffic (more bandwidth costs more but allows
larger quantity of data to be delivered on the link per time unit).

Given the link costs, and the network constraints, the goal is to
design a network satisfying the constraints, such that the network
cost is not too large.

The proposed problems have applications in VLSI, manufacturing, buying
large set of items at bulk and more. Theoretical insight into these
problems is likely to lead to better understanding of the problems.